Engineering Research Equipment Grant: Dual Channel Imaging Radiometer

This equipment grant provides a dual channel imaging radiometer to measure the two-dimensional temperature distributions of emitting surfaces. The instrument provides a spatially resolved image with a temperature resolution of 0.1 Degree Celsius and a time resolution of a fraction of a minute. The goal of this research is to understand the heat transfer in various problems. Studies on dielectrically-enhanced heating and drying as well as the radiant/convective transport in porous media will enhance the understanding of these complex phenomena. Materials processing and electronic cooling systems will also be investigated.